Texas Regional Teacher Development in Earth Science

The purpose of this project is to improve the earth science background of middle school science teachers. Thirty teachers from the state of Texas will participate each year. The project will place special emphasis on recruiting minority and physically-handicapped participants. During the summer, the project includes three weeks of instruction on campus and a 10-day field trip. The on-campus phase includes lectures by guest lecturers from Texas A&M University and afternoon laboratories. This will be followed by a 10-day field trip to Central and West Texas. The academic year following the summer workshop will have 3 two-day reinforcement meetings and classroom visitations by the project staff. In June following the academic year, a day will be devoted to implementation-dissemination activities. This will be followed by a 10- day field trip to the Southern Oklahoma area, the Central Mineral Region of Texas, and the Coastal Shoreline area. The project is designed to repeat the sequence twice starting with the summer phase.